Conference on Gauge Theory and Representation Theory

This proposal for a conference to be held at IAS in the
framework of the Special Year ``New Connections of
Representation Theory to Algebraic Geometry and Physics''.

Recent developments in representation theory, algebraic geometry
and quantum field theory have uncovered strong connections
between the following major branches of research: 1)
Kazhdan-Lusztig theory, understood broadly as study of numerical
invariants of representations by methods of algebraic geometry;
2) geometric Langlands duality program; 3) dualities of quantum
field theory such as $S$-duality and mirror symmetry. In
particular, many of the relevant constructions have, or are
expected to have, natural explanations in the framework of
4-dimensional supersymmetry gauge theory.

The conference will bring together representation theorists,
algebraic geometers and theoretical physicists whose work leads
to such connections, with the goal of advancing each of the
subjects, and achieving a deeper understanding of their roots in
gauge theory. The following researchers have agreed to
participate in the workshop: A. Beilinson, A. Braverman, T.
Bridgeland, M. Douglas, D. Gaitsgory, E. Frenkel, A. Kapustin,
M. Liu, G. Moore, H. Nakajima, N. Nekrasov, N. Saulina and E.
Witten.

Another important purpose of the conference is dissemination of
knowledge accumulated in each of the above mentioned areas among
experts in the neighboring fields and graduate students. Thus
we expect it to contribute to a synthesis of the new methods in
these fields, and to forming a new generation of researchers.